Genetic Dissection of the Specificity of Leucine Zipper Dimerization

Leucine zippers are formed when a pair of short alpha -helices in a pair of protein molecules bind in a
configuration called a coiled coil. Leucine zippers and other coiled coils are abundant in nature;
they are found in about 10% of all proteins encoded in typical genomes, including many important
transcription factors. The project addresses two complementary questions about leucine zippers.
First, how do the subunit interactions in the context of a specific leucine zipper from the yeast
transcription factor GCN4, control the specificity and stability of zipper assembly. Different
interactions will be engineered into the GCN4 leucine zipper and characterized by biophysical
assays including equilibrium and stopped-flow circular dichroism, sedimentation equilibrium, and
X-ray crystallography. In addition, new biophysical assays for leucine zipper assembly will be
implemented based on analytical ultracentrifugation and fluorescence correlation spectroscopy.
Second, the project will explore the diversity of coiled coils in a whole genome. Using powerful
genetic methods, the project will examine the specificity of interactions among hundreds of
naturally occurring, predicted coiled-coils from the yeast genome that must coexist in the same cell.
Because of their small size and simple, repetitive structures, leucine zippers have provided useful
models for studying general issues in how proteins fold. By combining research on specific
interactions with genome-wide studies of the properties of many zippers, this project will test
whether our understanding of protein foldin is sufficient to illuminate the biology of a large and
widely distributed class of important proteins.